Travel Support for the Directions in Statistical Computing (DSC) 2009 Meeting; Copenhagen, Denmark; Summer 2009

DSC 2009, an international workshop on Directions in Statistical
Computing, will be held July 13--14, 2009 at the University of
Copenhagen, Denmark. This is the sixth in a series of meetings;
previous meeting were held in Vienna, Austria (1999, 2001, and 2003),
Seattle, WA (2005), and Auckland, New Zealand (2007). The workshop
will focus on, but is not limited to, open source statistical
computing and aims to provide a platform for exchanging ideas about
developments in statistical computing. UseR! 2009 will be held July
8--10 in Rennes, France, and is the fifth in a series of conferences
the use and development statistical methods and software related to
the R system. This proposal is for funding exclusively to provide
support to assist with travel expenses for junior investigators from
US institutions to attend this meeting. Work of young researchers is
often among the most novel, yet often these researchers lack the
travel funds necessary to attend such a conference because they have
not yet established themselves sufficiently to attract external travel
and other funding for their work.

Statistics is playing an increasingly important role in
interdisciplinary research, and statistical computing is essential as
the means for making new methodology available to researchers and
allowing the best statistical practices to be applied effectively.
Scholarly conferences on statistical computing are an essential
framework for the exchange of ideas and for encouraging the
exploration of new directions in the design of statistical software.
International conferences are particularly valuable as they allow the
exchange of ideas among researchers from around the world who would
not ordinarily come into direct contact. The benefit to young
researchers of a first exposure to the international research
community is particularly important. International meetings also
provide an opportunity to meet with outstanding international graduate
students and encourage them to consider opportunities for further
study in the United States.